Experimental and Theoretical Studies of Molecular Structure and Dynamics in Solution

In this project in the Experimental Physical Chemistry Program, Thomas Farrar of the University of Wisconsin will use NMR relaxation techniques to investigate liquid phase interactions and hydrogen bonding between solvent and solute and their effects on structure and dynamics. Experiments include measurements of the temperature and solvent dependence of nuclear quadrupole coupling constants in simple systems, characterization of spin coupling effects and their application to solution phase structure and dynamics, and NMR and infrared studies to determine the relationships between chemical shift tensors, quadrupole coupling tensors, and force constants. Theoretical studies will also be conducted to interpret these measurements in light of existing NMR relaxation theory and to test the limits of current models. Nuclear Magnetic Resonance studies have already provided a great deal of information on the way molecules interact with one another in the liquid phase. Professor Farrar's work will help extend our understanding of these interactions to more complex systems such as those involving hydrogen bonding. Systems such as these are common in biochemistry, and the results of this work may have important ramifications in this area